The Physics of Marine Stratus Observations and New Aspects

The objective of this research is the analysis and interpretation of aircraft observations of West Coast marine stratus, particularly the relative contribution of water vapor transport from the sea, turbulent mixing within the clouds, and atmospheric radiation in the initiation and evolution of marine stratus.